3rd Annual Conference on Aerospace Computational Control, to be held in Oxnard, CA on August 28-30, 1989

This award supports a conference which assesses the status of and identifies research needs and opportunities in the field of aerospace computational control. Many of the topics addressed at the meeting have a direct bearing on research supported by the Dynamic Systems and Control Program. Specifically, multibody simulation formulation, articulated multibody component representation, parallel computation for multibody dynamics, model reduction, symbolic manipulation, and control design and analysis are included in the conference topics. Support of this proposal satisfies, in part, several key NSF goals including strengthening cooperation between industry and university researchers, and aiding in the transfer of technology from the research level to the users. It also represents cooperation between government agencies on research of mutual interest to the three agencies involved.